Graph Theory: Confluences in Molecular Biology and the Physical Sciences

Solow
0109738
There are certain confluences involving graphs in physics,
molecular biology, number theory, Teichmueller theory, dynamical
systems, fluid dynamics, and 3-manifold invariants, which in turn
reflect possibly deeper relations among their theoretical
foundations which have yet to be developed. The investigators
organize a workshop to consider mathematical structures with
application to specific problems in fields increasingly connected
to mathematics, for example the global geometry of macromolecular
folding, including both proteins and RNA. Recent mathematical
results allow for a treatment of the full spatial folding
problem: how do the physico-chemical properties of macromolecules
determine their spatial folding characteristics? Roughly,
folding can be modeled as a family of weighted arcs, each arc
corresponding to a chemical bond, the weight the Boltzmann
strength of the bond. The graphs formed from combining these
weighted ars give a space of weghted graphs representing all
possible foldings. Can an appropriate energy functional be found
on such a space to study the gradient flow minimizing the total
energy? Several participants use this approach to understand
dynamic folding. Related spaces of graphs in biology are those of
phylogenetic trees formed by speciation. Though the global
geometry of these spaces is understood, the nature of the local
geometry is not known; some of the participants study these
questions. A recent discovery in string theory is the exotic
structure of an "operad" associated with spaces of graphs. Some
of the researchers at the workshop investigate these higher order
structures, and their possible use in biology.
Graph theory is a branch of mathematics dealing with objects
called graphs. A graph consists of a set of points or vertices
that are connected by links or edges. An ordinary map, for
example, is a graph whose vertices are towns and whose edges are
roads. Although graphs are abstract objects, they have been used
to represent a wide variety of real objects or processes. A
familiar use of graphs is to represent the evolutionary
relationships between a group of organisms -- family trees. It is
a testimony to their great versatility and usefulness that graphs
have been used in fields as diverse as biology, economics, and
computer science. In the field of biotechnology, there has been
an explosion in the use of graphs to represent the complex
physical structure of the basic proteins produced by DNA. This
work has important applications in understanding genetic diseases
and in designing medicines to cure them. Because methods based on
graph theory have been developed independently in many fields, it
is extremely likely that sharing problems and results between
fields will lead to advances. The purpose of this workshop is to
bring together mathematicians and biologists working on problems
involving graph theory to describe and discuss their work in an
interdisciplinary setting.